Dissertation Research: Language Socialization and the Construction of Marquesan Identity

This project involves the dissertation research of a linguistic anthropology student from the City University of New York, studying language socialization in the Marquesas. The project involves a year-long ethnographic study of the beliefs and behaviors of a community of Polynesian-speaking Marquesans. The every-day interactions of several children, aged 2-5, will be observed and tape recorded. The transcriptions will be analyzed for evidence of how care givers socialize children into using Polynesian as the dominant language in the social construction of Marquesan identity. This project is important because this case study can help us understand the general processes involved in the maintenance of an ethnic identity in a social situation where another language and culture is politically dominant. Understanding how ethnic identity is maintained can help us comprehend the sources of ethnic conflict in the modern world.